Travel To Attend: 5th Danube Symposium on Chromatography; Yalta, USSR; November 11-16, 1985

Travel assistance is provided for attendance at the Fifth Danube Symposium on Chromatography, Yalta, USSR, November 11-16, 1985. The principal investigator is invited by the organizing committee of the Symposium to present one of the main lectures on ion exchange. Attending the symposium gives participants the opportunity to exchange information with many other workers in ion exchange and chromatography, potentially important processes for the recovery of specialty chemical products.